Research Workshop on Direct Contact Heat and Mass Transfer, August 4-6, 1985, Golden, Colorado

Support is provided for a research workshop in the interdisciplinary area of direct contact heat and mass transfer. The workshop is to be held on the days preceding the 1985 ASME/AIChE National Heat Transfer Conference, and the results will be published as a guide to the research community on opportunities and needs in direct contact heat and mass transfer. This area offers the potential for improving the efficiency and reducing the capital investment in many industrial processes, particularly in the chemical industry, in waste heat recovery, and in low-temperature renewable energy conversion. Research in direct contact heat transfer is currently in a growth stage. It is hoped that the workshop will serve to ascertain the state of current knowledge, determine what progress is impeded by lack of knowledge, and identify the specific topics that need attention in future research programs.